Multiphoton and Far-UV Spectroscopy of Few-Electron Systems (Physics)

Precise laser spectroscopy of H2 and atomic helium is carried out to determine fundamental physical properties of these systems and to investigate their excited state dynamics. Studies include (1) molecular states very near the dissociation limits, (2) attainable limits in far-UV spectroscopy, (3) measurement of the two-photon 11S-21S interval in atomic helium, (4) the Stark effect in molecular Rydberg states, and (5) predissociation and autoionization in small molecules.